A Workshop to Explore Enhancing Collaboration Between US and Chinese Researchers in Systematic Biology

This award supports a workshop in China to develop collaborations in the field of systematics and biodiversity research between US and Chinese scientists. Discovering and documenting the wealth of Earth's biodiversity and determining how these millions of life forms are interrelated are labor intensive activities. International research is a nearly universal aspect of modern systematics, and building effective and productive collaborations is essential. This research requires scientists to cross national boundaries to study plants, animals, fungi, and microbial species in their native habitats. No single country has all the expertise, resources, or human capacity to accomplish this essential research on their own. The United States and China are home to many researchers who are active in systematics, paleontology, biodiversity discovery and related fields, but collaborations are relatively few. It is with these thoughts in mind that this workshop has been organized to discuss the need for greater collaboration between US and Chinese systematists, and mechanisms that will facilitate the development of new collaborative relationships. The focus of the workshop is systematics, broadly defined to include the study of the diversity and evolutionary history of life, including both living and fossil taxa.

The workshop will be three days in length and will include 30 participants and potential collaborators from the US and a similar number of participants from China. Participant selection is based on criteria seeking to: maximize taxonomic diversity representation among the species being studied; find equal representation among scientists working on biodiversity inventory, taxonomy, and phylogeny; provide broad representation of museums, botanic gardens, universities, colleges, and other institutions. Workshop management will be handled by six co-organizers (three in the US and three in China) and a steering committee of three additional participants. After the workshops are concluded the organizers and steering committee will prepare a comprehensive report for public distribution. This workshop will benefit the discipline more broadly by improving scientists' abilities to share resources and address a diverse range of questions that depend upon solid understanding of biodiversity and systematic relationships. Enhancement of international collaboration will also benefit individuals directly through enhanced career development.